Mechanisms and Integration of Signal Pathways: A Role for Calpains?

9319602 Croall Cells receive environmental signals which determine their development, growth and differentiation. How external signals transmit information to the nucleus to regulate these processes is a fundamental question of cell biology. The long range goal of this research is to understand the biochemical mechanisms that mediate cellular responses to these signals. This project focuses on the two calcium-dependent proteolytic enzymes, micro- and milli- calpain (EC 3.4.22.17), and a protein inhibitor that specifically inhibits them, calpastatin. These enzymes may play a direct role in calcium-linked signal pathways and also may mediate integration (cross-talk) between signalling pathways. The proteins susceptible to calpain represent each phase of signal transduction including receptors, kinases, phosphatases and transcription factors. It is not known whether these signalling components share common features that are recognized by calpain. These studies will characterize the substrate recognition determinants for calpains by 1) identifying the calpastatin binding site within calpain; 2) testing the hypothesis that either calmodulin-binding domains, PEST- regions, or both, mediate substrate recognition; and 3) analyzing the amino acid sequences surrounding calpain-cleavage sites within potentially, physiologically significant protein targets. Results of these studies will provide new approaches for experimental manipulation of calcium-linked signal pathways. Another objective is to discover how calcium regulates calpain activity. It is hypothesized that the regulation of calpain by calcium is analogous to calmodulin regulation of its target enzymes. A first step toward testing this hypothesis will be to examine the effects of calmodulin antagonists on calpain. Further tests of the hypothesis are envisioned, but are beyond the scope of this project. The results of these experiments should provide important insights towards a general understanding of how calcium regulates the functions of the proteins and enzymes that can bind calcium ion directly. %%% Cells receive environmental signals which determine their development, growth and differentiation. How external signals transmit information to the cell nucleus to regulate these processes is a fundamental question of cell biology. One major internal messenger in signaling is calcium. Intracellular calcium levels have been found to go up in response to a variety of signals in many types of cells, but the mechanisms by which calcium acts in various signaling pathways are not yet understood despite much research. This project focuses on two calcium-dependent enzymes that break down specific proteins, and an inhibitor that specifically inhibits them. These enzymes may play direct roles in calcium-linked signal pathways and also may mediate cross-talk between different signalling pathways. A primary goal of this research is to characterize the mechanisms by which the calcium- dependent enzymes recognize and act on other proteins in the signaling pathways. The results will be an important contribution to our understanding of the role of calcium in cellular signal transduction mechanisms.***